The Application of Grid-Based Tactile Pressure Technology to Discontinuous Materials

***
9908612
Paikowsky
Large variation in stress distribution within granular materials is a result of
their unique characteristics. The stress variations are of great importance
for basic science and many engineering applications. The present research is
aimed at the investigation of the stresses developing in granular materials
utilizing grid-based tactile pressure technology. A development of a
calibration and interpretation methodology for the tactile sensors is
proposed. Experimental program investigating the state of stress in granular
materials under fundamental and engineering applications is planned.

The behavior of discontinuous (discrete, granular) materials is an important
factor in many disciplines. These materials display unique behavior in the form
of volume change during shear and arching. The fundamental mechanism of arching
relates to the ability of discrete units to transfer loads through interaction
in a preferable geometry and thus to bridge between the zone (or point) of load
application to the zone (or points) of reaction. These features result in a
unique load transformation and stress distribution within discontinuous
materials and on the boundary between them and solid surfaces. Accurate
measurements of stress distribution are cardinal therefore for the
understanding of the physical phenomena as well as the evaluation of design
criteria and monitoring performance.

The existing methods of evaluating stress distribution in a granular mass rely
mostly on the use of buried load cells. These measurements are difficult to
perform and are limited in their ability to capture the stress variation.

A new technology, which makes use of flexible, grid-based, tactile pressure
sensors, allows to measure stresses at a large number of points in proximity to
one another, hence providing a realistic normal stress distribution. Their
flexibility overcomes the intruding effect introduced by rigid load cells and
thus allows for measurements that better represent the existing stress
conditions. The application of the tactile pressure technology to granular
materials requires adaptation and calibration due do its innovative principle
of operation. A preliminary viability study was conducted at the Geotechnical
Engineering Research Laboratory at the University of Massachusetts Lowell,
which focused on evaluating the tactile sensor technology, overcoming the
difficulties associated with it and utilizing the method in exploratory
applications. The results of this study have provided the basis for the
present research.

The proposed experimental program includes enhancement of the calibration and
testing of the system followed by basic and applicative research applications.
The obtained results and analyses (numerical and analytical) are expected to
provide (a) Basis for the implementation of a new technology to granular
materials. (b) Significant insight to evaluate current knowledge and (c)
Actual stress measurements and behavior of granular materials and structures
from a previously unobtained perspective. The use of the technology in
education is promising, allowing for demonstrations elucidating the concept of
stresses.
***